Group Travel Grant for Faculty at Minority Institutions

This grant funds participant costs for the 2010 Software Engineering Educators' Symposium (SEES), where participants will learn about latest pedagogy in Software Engineering education and teaching techniques that appeal to diverse learners. Participants will be also attend the 2010 SIGSOFT Conference on Foundations of Software Engineering (FSE-18), where they will network with researchers in Software Engineering. Leaders in the field have volunteered their time to organize and run the event. The goal of this proposal is to help reverse the decline in the percentages of minority and women students choosing to study computer science at American colleges and universities. To achieve this goal, the grant will emphasize participation from colleges and universities with large minority and/or female student enrollments.